Algebraic and Numerical Computations with Matrices and Polynomials

The goal of this project is to design effective algebraic and numerical algorithms for matrix and polynomial computations. The specific problem domains to be investigated include the following: practical acceleration of matrix multiplication; computations with sparse matrices; computations with dense structured matrices, such as Toeplitz, Hankel, Vandermonde, and Hilbert matrices; compact multigrid schemes; polynomial computations and their relation with structured matrix computations.